PARTAGE: An Open Peer-to-Peer Infrastructure for Cycle-Sharing

Hu/Vitek abstract

Large-scale compute-cycle sharing for complex and large scientific
applications is a long standing challenge in distributed
computing. Many cycle-sharing systems have been developed and have
delivered orders of magnitude improvement in available resources.
Nevertheless they are limited in their performance or capability.
Furthermore, other forms of resource sharing and coordination
are needed to achieve truly distributed access to scientific infrastructure.

The goal of this project is contribute to the national science and
technology infrastructure by developing enabling technologies for
virtual laboratories open to researchers from all disciplines. This
infrastructure will leverage resources in peer-to-peer computing and
programming languages to deliver an alternative architectural model
for resource sharing over wide area networks. The self-organizing
aspects of peer-to-peer networks promise to eliminate much of the
difficulty required to configure and maintain a large-scale globally
distributed computing and control system, and decentralization removes the
potential bottleneck and single point of failure of centralized
service nodes. This project's contributions will be to provide
abstractions for Peer-to-peer Computing based on extensions to the
object-oriented programming model and to develop a Peer-to-peer
Infrastructure which extends the current peer-to-peer networks
developed for routing and data-centric applications.

This project will work collaborativey with the DARPA Program
Composition for Embedded Systems (PCES) initiative to apply
the proposed resource-balancing techniques developed in this project
to sensor networks and distributed real-time systems of national importance.

The educational impact of the proposed research includes integration
of advanced distributed systems research into both undergraduate and
graduate curricula, and outreach activities that involve high schools
students into active participation in Internet-scale computing.